Computing and Hardware Upgrades for Atmospheric Radar Research

The University of Illinois, Urbana-Champaign has been involved in the study of the atmosphere and ionosphere using radar techniques for a long time. Currently there are a number of projects taking place at their Urbana Field station as well as in using the incoherent scatter radar in Jicamarca, Peru that would be enhanced through the acquisition of new computer and radar hardware. This equipment would be used for data acquisition, processing and analysis as well as in the operational control of one or the other of the various available radars. These upgrades will be used with the available Stratospheric and Mesospheric radars in conjunction with other instrumentation in studies of gravity wave activity throughout that region. Additional studies will be directed to middle atmospheric layering phenomena at both Urbana and Jicamarca.